Third German-American Frontiers of Science Symposium

This proposal requests support for the third annual German-American Frontiers of Science Symposium (GAFOS) to be held in Munich, Germany, June 19-22, 1997. Sponsored by the German-American Academic Council (GAAC) (founded March 26, 1993 by German Chancellor Helmut Kohl and President Bill Clinton), the GAFOS is designed to bring together the best young researchers from Germany and the United States to hear lectures and engage in discussions on cutting edge issues in science and engineering, and possible future development. The Symposia bring not only bring together researchers from the two countries, but also researchers form different disciplines in the expectation of being able to apply techniques of problem solving from one field to other fields.